REU Site: Physics at the University of Florida

The University of Florida operates a Research Experience for Undergraduates (REU) Site affiliated with its Physics Department. Fifteen students are recruited nationwide every year for a ten-week summer research experience. The main scientific theme of the REU Site is the modern physics of materials, with a secondary focus on detectors for large-scale physics experiments. As part of their scientific training, students prepare a report and present a short talk on their research activities; the reports are published in the University of Florida Journal of Undergraduate Research as appropriate. Participants also attend weekly scientific seminars, workshops on scientific communication skills, field trips to nearby research facilities, and collective recreational activities